Analysis of the Drosophila Gene Rhomboid

Bier 9603801 The goal of this research proposal "Analysis of the Drosophila gene rhomboid" is to understand how the Drosophila rhomboid (rho) gene amplifies signaling through the EGF-Receptor (EGF-R) pathway. rhomboid encodes an integral membrane protein (Rho) which is concentrated in unique plaque-like structures at the apical cell surface. The products of the rho and Star genes are likely to promote EGF-R signaling since mutations in rho, Star, Egf-r, and a gene encoding an EGF/TGF-a type of growth factor (spitz) lead to extremely similar embryonic phenotypes. rho is expressed in a spatially restricted pattern corresponding to cells requiring hyperactivity of the EGF-R pathway, while genes encoding EGF-R, Star, and the Spitz (Spi) ligand are ubiquitously expressed. This localized expression of rho is critical for limiting augmented EGF-R signaling to appropriate cells. The following are specific research goals for this proposal: I. Dr. Bier will determine whether Rho interacts physically with other proteins by generating epitope tagged versions of the Rho protein and using characterized antibodies against the epitope tags to immune-precipitate active tagged Rho proteins along with other potential interacting proteins such as Star or EGF-R. He will also determine whether Rho and Star proteins co-localize in plaques. II. He will identify functionally important regions of the Rho protein by generating a limited set of targeted rho mutants using in-vitro mutagenesis and random in vivo mutagenesis to revert the dominant ectopic vein phenotype of a fly stock carrying a mix-expressed rho transgene. He will sequence recovered rho mutants to determine whether they cluster in potential functional sub-domains of Rho and whether mutant Rho proteins can form plaques. III. He will compare the genetic requirements for rho, Star, and spi during wing vein development and mix-express rho clonally using the flip-out technique to further investigate the locally non-autonomous action Of rho. He also will us e mosaic analysis to determine the role of spi in wing development.